Improving Science in Grades 6-9 in Iowa

This program is designed to assist the middle school science teachers of Iowa in moving toward a curriculum emphasizing the interactions of science, technology, and society. During the summer of 1987 the first 60 teachers, in two sections of 30 each, will study either life science or physical science. The second and third summers will involve 60 teachers in pairs of workshops emphasizing life science, physical science, or earth science, depending on demand and need. These six-day workshops will update participant's content knowledge and provide opportunities to be a member of an S/T/S learning environments. Teachers attending the summer course will receive one semester hour of graduate credit. Each group of 60 teachers will be joined by an additional 60 teachers in attending 2 two-day Chautauqua programs. Each year four Chautauqua Conferences will be organized for different geographical areas throughout the state. The initial meeting will focus on such topics as developing a S/T/S rationale, model teaching examples, and on evaluation techniques. A follow-up session six months later will review teacher products, teaching activities, and evaluation efforts. During the period between Chautauqua programs follow-up will be provide by fifteen area Education Consultants. The area Consultants will visit Chautauqua participants in their areas. These follow-up visits will supplement visits by University of Iowa staff. In addition, a monthly newsletter will provide continuing links to staff and other participants. Those attending the Chautauqua series will receive three semester hours of credit. During each summer, following the NSF Summer Workshop, a one week Leadership conference will be hosted by the various utility companies of Iowa. The workshop is designed to provide additional background, as well as specific planning for the Chautauqua series held during the following academic year. These teachers will provide examples and expertise in curriculum development and implementation. One semester hour of graduate credit will be awarded upon successful completion of the Leadership Conference.